"New Application of Database Knowledge"

With a few exceptions, the current role of database knowledge is to assist in the evaluation of data queries. This project applies database knowledge in two new tasks: knowledge queries and intensional answers. When database knowledge is of substantial volume and complexity, there is genuine need to interrogate it directly. Moreover, since users of the database may not be able to distinguish between information that is data and information that is knowledge, both should be available for querying, preferably by means of a single instrument that would blur the distinction. Database knowledge can also be used to characterize the extensional answers issued by the database. Knowledge statements that apply to an extensional answer are inferred from the global knowledge and presented as an intensional answer, thus providing extensional answers with additional meaning and insight. This project extends the role of knowledge, to provide answers that contain knowledge, either in response to knowledge queries, or in response to data queries. As these two topics have much in common, they are investigated within a common framework, logic databases, to provide a unified solution: a query language for both data and knowledge, and an answering mechanism that responds with both data and knowledge. The results of this research are expected to improve the expressivity of query languages and the meaningfulness of database responses.